RUI: Weak Interaction Studies in Nuclear Beta Decay (Physics)

This grant supports a search for scalar admixtures in the weak interaction leading to nuclear beta decay, by a Grinnell College faculty member and undergraduate students. The measurements will be carried out by this group using radioactive sources of Grinnell and also using accelerator-produced sources at the Triangle Universities Nuclear Laboratory in North Carolina and at the Princeton University Cyclotron Laboratory.